A Direct Modeling Approach for Phylogenetic Comparative Analysis

The funded research aims to provide practical tools for biologists who
use cross-species comparisons to identify significant functional,
ecological, or historical factors shaping the patterns of diversity
among species. For example: is the evolution of HIV virulence related
to rates of transmission among hosts? Which environmental factors most
strongly influence the rate of evolution, and what are the strengths
and directions of evolution? This broad class of questions all involve
adaptive evolution (i.e., the direction and strength of natural
selection). All existing methods share the significant shortcoming in
using a completely neutral model of evolution. That is, previous
methods fail to account for natural selection, despite the fact that it
is the central feature of interest. The method developed here is the
most comprehensive to date. It simultaneously accounts for random
evolutionary fluctuations (such as genetic drift), common ancestry, and
natural selection (under multiple adaptive regimes). Methods are
provided for formulating scientific hypotheses as explicit mathematical
models, each of which can then be fit to the data. Modern
model-selection theory is then to identify the best-support model or
models. Because in this approach, the causal factors of interest are
explicitly modeled and tested directly against data, scientists will be
able to use these methods to identify which aspects of the evolutionary
process are most important, describe the relative strengths and
directions of these evolutionary forces, and understand how they have
influenced the tempo and mode of evolution.

The comparative method is a fundamental tool in organismal,
evolutionary and ecological biology. It is used to identify and study
the factors which have been important in producing the diversity of
life we see today. Understanding the significant environmental,
functional, and genetic mechanisms operative in the past is critical
for planning conservation strategies for the future. It is also
important in planning effective strategies to control human disease.
For example, two fronts in the battle against HIV, predicting the
spread of drug-resistance and immune-escape mutations, rely on an
understanding of how HIV evolves in response to natural selection and
how HIV evolution differs within and among hosts. Beyond the
environmental sciences, it is now widely appreciated that studies of
function (at the organismal, biochemical, or gene level) require the
application of the comparative method.The funded research will provide
practical tools to enable comparative biologists to make stronger tests
of their hypotheses.